Salton Sea Scientific Drill Hole: A Natural Laboratory for Investigation of the Mineral-Solution Equilibria in a Deep Geothermal System

The proposal involves continuation of a two year study investigating mineral-solution equilibria and low-grade metamorphism induced by circulatory fluids in the Salton Sea hydrothermal system. Cores and fluid samples obtained by the Salton Sea Scientific Drilling Project have been characterized in terms of structures and compositions of vein and alteration minerals (especially epidote). An analog study of sample from an Icelandic geothermal system was carried out in addition. Continued research will evaluate (1) details of fluid-mineral equilibria, (2) crystal, chemical, and isotopic characteristics of hydrothermal epidotes, (3) low temperature reactions in sandstone reservoir rocks, and (4) relations between fracturing, hydrothermal circulation, and fracture sealing in a hydrothermal system. These results will be applied to evaluation of reaction processes in water-rock systems worldwide.